Laser-Induced Flourescence System for Studies in Thermal Plasma Processing

This grant is to purchase a Laser-Induced Fluorescence System (LIFS) which will be used in Thermal Plasma Processing studies. The simultaneous detection of two signals originating from two different excited states provides a knowledge of the concentrations of a number of important chemical species in space and time. This is vital to the identification of the reactions which control plasma processes. The accurate knowledge of the thermal state of plasmas in arbitrary design conditions does help in the search for optimal geometries or modes of operation. A large number of industrial processes depend on high temperature plasmas; they stand to be improved if the plasma processes are better known and predictive methods become available.